Solar Flux Tube Models with Radiative Transfer

This study continues investigating the equilibrium structure of intense magnetic flux tubes, as calculated by solving the magnetostatic equation sin the thin flux tube approximation. Most significant about past studies was the inclusion of multistream radiative transfer in cylindrical geometry, and the continuous transition between radiative and convective energy transport. The flux tube's influence on the ambient medium was not taken into account, however, thus limiting previous work. This effect is important for examining the horizontal temperature variation, especially at the interface between the flux tube and external medium. In this study, the PIs will use a multidimensional treatment of radiative transfer in cylindrical geometry to include this effect.